RUI: Synthesis and Optical Spectroscopy of Low Phonon Energy Materials

The proposal research is to study the synthesis and characterization of low-phonon energy materials doped with rare earth for remote sensing, infrared spectroscopy, infrared counter-measures, and efficient fiber amplifiers for telecommunications. Studies include concentration dependence of energy transfer in Tm: YC13, a study of upper state lifetime in Ho: YC13 optimal growth conditions for Er: PKb2Cl3, and co-doped systems.